Industry/University Cooperative Research Activity: Dense Slurry Flow

Modeling particulate flow is the object of this investigation. The study aims to apply the volume averaging approach to model dense slurry flow. The work will be augmented by full-scale test data from the GIW Industries Hydraulic Laboratory in an industry/university cooperative effort.